PostDoctoral Research Fellowship

This award is made as part of the FY 2014 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Alexander Cloninger is "A Generalized Framework for Heterogeneous Data Fusion without Point Registration." The host institution for the fellowship is Yale University, and the sponsoring scientist is Dr. Ronald Coifman.